Oceanographic Instrumentation

The College of Oceanography at Oregon State University has requested several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V WECOMA, a research vessel owned by the NSF and operated by the University. A substantial part of the ship's operating schedule during 1988 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -shipboard computer system for the Acoustic Doppler Current Profiler, -a fluorometer for measuring chlorophyll and other pigments in the water column, -a 150-kHz acoustic transducer for the current profiling system, -a Rosette sampler system for collecting discrete water samples at precise depths, and -several replacement water sampling bottles. The instrumentation described above will increase the capability of the University to support NSF-sponsored research and engineering projects.